WORKSHOP: NSF Frontiers of Experimental Condensed Matter Physics (CMP) Principal Investigators Workshop on Materials for the Quantum Revolution

Abstracts are a public record of active and expired awards and are an important source of information on NSF activities. The purpose of the Abstract is to describe the project and justify the expenditure of Federal funds. Abstracts must not contain inappropriate or confidential information, and because they are available to such a wide audience, high standards of quality must be maintained in preparing them.

The NSF award abstract has two parts, which should appear in the following order:

-Part 1: A nontechnical description of the project, which explains the project's significance and importance. This description also serves as a public justification for NSF funding by articulating how the project serves the national interest, as stated by NSF's mission: to promote the progress of science; to advance the national health, prosperity and welfare; or to secure the national defense. This part of the abstract should describe the fundamental issues the project seeks to address, as well as other potential benefits, such as how the project advances the field, supports education and diversity, or benefits society. This part should be understandable by a broad audience.

-Part 2: A technical description of the project that states its goals and scope, the methods and approaches to be used, and its potential contribution. In many cases, the technical project description may be a modified version of the project summary that is submitted with the proposal. However, the technical description should reflect any changes in the project's goals made after the review process.

Upon award of a proposal, the Abstract is available in the Award Search application and via FastLane.
--------------------------------------------------------------------------------

This workshop brings together researchers to discuss current topics and needs in quantum science and technology which include fundamental aspects of topological phases of matter, quantum sensors and systems, quantum technology and the quantum workforce. The talks are setup to review progress that has been accomplished in the last few years and set out new challenges and exciting opportunities in developing materials and applications for the quantum revolution. Discussions at this meeting are designed to identify key questions within the field and promote brainstorming on future directions. Specific areas to be highlighted include: Fundamental Topics, Quantum Sensors and Systems, Quantum Technology, Quantum Workforce. Furthermore, panel discussions on the current state of research and funding in the ﬁeld of “materials for the quantum revolution” are planned to elucidate new trends and exciting areas of development.